Topology and Geometry of Manifolds with Lower Curvature Bounds

ABSTRACT DMS - 0203979.

This project deals with three areas of Riemannian geometry, namely,
nonnegative sectional curvature, negative sectional curvature,
and almost nonnegative Ricci curvature. Specifically, we continue
the search of new examples of metrics of nonnegative sectional
curvature and obstructions to their existence, especially in the
simply-connected case, we plan to analyze the structure of open
pinched negatively curved manifolds with nilpotent fundamental
groups, and to study the difference between nonnegative and
almost nonnegative Ricci curvatures.

One of the main goals of modern geometry is to obtain global
qualitative information about a space by measuring its local
quantitative properties. Say, it has been known since the
nineteenth century that a space that locally looks like an egg
must globally look like an egg, not like a doughnut or a jungle gym.
This project deals with similar matters for higher dimensional
spaces, some of which occur naturally in physics and engineering.